Collaborative Research: CMG: Multi-Resolution Inversion of Tectonically Driven Spatio-Temporal Gravity Signals Using Wavelets and Satellite Data

The primary objectives of this investigation include
interdisciplinary studies of tectonically driven spatio-temporal
signals resulting from complex geophysical processes. These
processes include convergent plate boundaries, earthquake
deformation cycle, mantle convection, intra-plate deformations and
Glacial Isostatic Adjustment (GIA). At present, these processes
generate small but measurable signals in the form of surface
deformations, which at present can only be detected over land by
either point measurements using GPS, or on small spatial scales (<100
km) using InSAR. These "slow deformation" signals have spatial
scales longer than hundreds of km to continental and planetary
scales, and temporal scales of a year to decades, and millennia. The
Earth's gravity field and its spatio-temporal variations, providing
insight on the integrated mass redistributions within the Earth's
systems, represent a unique fundamental measurable quantity to
directly study mechanisms which drive these complex processes with
many degrees of freedom. For the first time ever, dedicated
satellite gravity missions like CHAMP, GRACE and GOCE are anticipated
to measure these small, broad-scale tectonically driven signals in
the form of integrated mass change and vertical deformations.
However, the contemporary mathematical functions to represent the
geopotential are conventionally spherical harmonics which do not
allow spatial localization. 3-D wavelets have notable advantages
over spherical harmonics, e.g. for multi-resolution representation
and localization, however, would have to satisfy the so-called
"boundary-value problem". The overarching scientific goal is to
develop multi-resolution based 3-D wavelet tools to enhance the
tectonically driven spatio-temporal gravity signals for improved
analyses and to make progress towards addressing the major open
scientific questions of understanding the driving mechanisms of these
"slow deformation" over land, ocean and ice-covered surfaces. The
investigators propose to develop mathematical tools based on two
wavelet approaches: (1) the rotational invariant spherical wavelet
function, and (2) the non-separable compactly supported
tensor-product wavelets to represent the spatio-temporal gravity
field signals and perform geophysical "inversions" to enhance the
signals. The "inversion" of these gravity signals represents
stringent mathematical and numerical challenges, especially in light
of the need for multi-resolution representation to enhance localized
signals and to consider extending wavelets to include the time
dimension. The broader impacts and anticipated results include the
development of 3-D wavelet tools capable of solving the boundary
value problem and inversion of gravity signals using satellite data
and to demonstrate and apply the technique in the Nazca and South
American plate region. The developed mathematical tools are intended
to be among the first steps to "popularize" the use of 3-D wavelets
for teaching and research, and are applicable to numerous
interdisciplinary scientific studies and engineering problems.